Topics in Applications of Set Theory

Solecki's research interests lie in applications of
mathematical logic (model theory, set theory and, primarily,
descriptive set theory) to analysis and topology. The project
consists of several parts. For example, Solecki proposes to
investigate a problem of automatic continuity of universally
measurable homomorphisms on Polish groups. A possible solution to
this problem will certainly involve descriptive set theory of
Polish groups. However, it is also likely to rely heavily, on the
one hand, on set theoretic assumptions (like the Continuum
Hypothesis) and, on the other hand, on algebraic properties of the
underlying group (amenability, freeness). Indications of the
connections between this problem and set theory and algebra can be
found in earlier work of Christensen, Mokobodzki and Solecki. In
another part of the project, Solecki will apply methods developed
first in set theory (in the study of Borel equivalence relations)
to problems in topology and model theory. First, he will use
descriptive set theoretic techniques augmented by tools coming
from model theory to investigate the structure of an important
topological space---the pseudo-arc. Second, he will apply methods
from descriptive set theory to study groups associated canonically
with countable complete theories---Lascar's Galois groups.

In the project, Solecki will apply techniques and notions
developed in mathematical logic to problems in other areas of
mathematics. For example, he will investigate a certain
topological space---a hereditarily indecomposable continuum called
the pseudo-arc. These types of topological spaces were first
introduced in mathematics in the first quarter of the twentieth
century as curious examples of extremely complicated curves.
Today, we know that they appear naturally in many mathematical
contexts, e.g., in fluid dynamics, in smooth dynamical systems
living in Euclidean spaces, among topological groups, in the study
of continuous functions, etc. Solecki intends to gain a better
understanding of the pseudo-arc by using methods from descriptive
set theory, a branch of mathematical logic, which were originally
developed to study in an effective way the size of abstract sets.
It is hoped that crossing boundaries of subfields of mathematics
by applying set theoretic methods in analysis and topology should
lead to new and substantial insights.